Laser-Driven Directional Solidification in High Tc Superconducting Polycrystalline Fibers

The promise of high temperature, superconducting ceramic materials is well known. However, there are many practical difficulties involved in fabricating technologically useful conductors from these materials. The Phase I effort has demonstrated the usefulness of a laser-driven solidifaction process in producing high temperature superconducting wires with a controlled orientation of the ceramic crystals to improve the conducting properties. The Phase II research objectives include design of a computer-controlled, laser-driven directional solidification furnace, determination of the best extrusion parameters for the precursor material, characterization and testing of the wires which are produced and scale-up of the process.